Seismic Attenuation Structure of the Alaskan Subduction Zone

9303945 Sanders This research is to image the attenuation structure of the Alaska subduction zone and overlying mantle wedge by means of seismic tomography. S-to-P amplitude ratios measured from earthquakes located in the Alaska subduction zone and recorded by the Alaska Earthquake Information Center seismic array will be inverted for three-dimensional attenuation structure using an algebraic reconstruction algorithm. The resulting image will be used to test hypotheses concerning metamorphic and thermal processes at and above the contact zone between the subducted oceanic crust and the mantle lithosphere. In addition to determining the thermal and petrologic structure of the subduction zone, the study will constrain the importance of shear heating in subduction zones and further our understanding of arc magma genesis. ***